TOWARD QUANTUM SEMICONDUCTOR MICROCAVITIES

This proposal is a renewal for the award ECS-9421517, "Semiconductor Physics and Photonics". The PI has played a significant role in the pioneering work and made important discoveries regarding the normal-mode coupling in semiconductor microcavities. This renewal proposal is aimed to extend the previous accomplishment toward quantum limit of the micro-cavity where a strong coupling exists that can produce a change in the absorption by a single photon. All semiconductor microcavities to date have operated in the semi-classical regime where 105 photons are required. Although interesting optical non-linearity can be obtained in such a system, the quantum effects analogous to atomic cavity quantum electrodynamics has not been observed. In this proposal the PI suggests to fabricate and analyze transversely confined microcavities with ~100 nm diameters that will enable the quantum regime to be achieved in the semiconductor system.